Colloborative Research on Market Structure and the Nature of Trade in Business Services

The market structure of business services normally adheres to hierarchical principles, but trade in business services exhibits far less regularity with flows often extending from smaller to larger centers. This incongruity between market structure and patterns of trade remains a critical obstacle to understanding how business services function in the space economy. This project investigates how the market structure of business services affects patterns of trade within a system of cities. It develops a model of market structure and market interaction for business services, and it uses the model to devise a taxonomy of business services that identifies their relative locational dependence. Survey data from a sample of 600 establishments are used to identify the trade of ten different business services located in ten midwestern cities. A spatial interaction model is calibrated with these data to model flows of trade among business services within a hierarchy of urban places. This project shows how the characteristics of business services shape market structure. The model also distinguishes the exchange of services, occurring within a system of cities, from the trade of services which occurs with centers outside of the city system. With the increasing importance of business services in advanced economies like that of the United States, this research should add important new knowledge on how these services fit into the hierarchy of cities, and on how trade among them circulates through the city system.